Office of Naval Research (ONR) Support of the National Center for Atmospheric Research Activities

This is the Cooperative Support Agreement under the NSF/UCAR Cooperative Agreement to support the National Center for Atmospheric Research activities funded by the Office of Naval Research.